CAREER: A Network Information Theoretic Approach to Wireless Ad-hoc and Sensor Networks

With the recent advances in theory, technology and applications of
wireless communications a vision of the next generation wireless
systems arises to be that of communicating arbitrarily correlated
data, in arbitrarily structured networks, in challenging physical
layer conditions, using wireless devices that are more flexible in
terms of their transmitting/receiving capabilities and in terms of the
boundaries between the layers of their protocol stack. The goal of
this research is to develop a comprehensive information theoretic
framework for determining the ultimate capacity limits of such
networks and for developing efficient coding, transmission, reception
and decoding schemes to be used in such networks.

The research is structured into four heavily interrelated parts:
network, data, tools, and channel. This research investigates the
capacity regions and capacity achieving transmit/receive
coding/decoding schemes of basic network structures that are building
blocks of general ad-hoc multi-hop wireless networks, with an emphasis
on the interference channel. This research develops principles of
communicating correlated and common data. Specifically, the
investigator determines the optimum coding and transmission schemes
for correlated/common data and also studies the trade-offs between
performance and complexity; in particular, the loss in performance
when the source-channel separation principle is enforced. This
research develops new tools and integrates and jointly optimizes some
of the existing tools; the emphasis is on the joint optimization of
user cooperation and power control. This research integrates the
fading nature of the wireless communication channel into all of the
problem formulations. The existence of fading in the channel can be
both challenging and fortuitous, more the latter, if it is carefully
exploited to the advantage of the network capacity. The investigator
incorporates the existence of the channel fading into the capacity
evaluations (hence, ergodic and outage capacities), into coding and
transmission schemes for common/correlated data, and also into the
development of the tools.
------------------